Mathematics Assessment in the Classroom

This eighteen-month project is designed to help teachers gain insights into their students' mathematical cognition. The project will develop assessment techniques which teachers in grades 2 and 3 may use to learn about their students' mathematics thinking and learning in the classroom. The clinical interview, a technique normally used only as a research methodology in developmental and educational psychology, will serve as the basis for the development of the assessment techniques. Skilled teachers will participate in the development; four diverse school districts have agreed to participate in a substantive way in the project. Project activities include: a series of three workshops for teachers and supervisors introducing educators to general concepts concerning children's mathematics learning and understanding, focusing in particular on second and third grade learners, and introducing the ideas of clinical interviewing. (The workshops will be based primarily on the materials for teachers developed in TEI-